U.S.-France Cooperative Research: Modeling and Estimating Recruitment Dispersal in Animal Populations

This two-year award for U.S.-France cooperative research in population biology involves Jay Hestbeck of the University of Massachusetts, Kenneth Pollack of North Carolina State University, and the research group led by Roger Pradel at the Centre d'Ecologie Fonctionnelle et Evolution in Montpellier, France. The objective of their research is to estimate and model recruitment of young animals within a metapopulation system. The ecological setting involves multiple locations where adult animals reproduce and among which adults may move. Young animals undergo a period of maturation during which they must survive and possibly move to a different location to enter the breeding population as an adult. Current studies and models for population dynamics do not include this dispersal component. Through the combined efforts of these two complementary research groups, new models will be developed that include animal dispersal.